Nuclear Reaction Theory

Pawel Danielewicz and Filomena Nunes plan to conduct research on nuclear reactions, with particular emphasis on theory that applies to and can be tested by experiments at current accelerator facilities, such as of the Michigan State University and of the Brookhaven National Laboratory. In the latter context, the proposal aims at advancing the theory for reactions with rare isotope beams and for learning on bulk nuclear properties at different bombarding energies. Specific goals in those respective areas include the study of breakup effects in reactions with weakly bound nuclei and advancing of the quantum transport theory for central reactions.